RUI: Dynamics of Interfacial Patterns

9319973 Gollub Technical Abstract: This program of experimental research is aimed at extending their understanding of nonlinear phenomena involving macroscopic interfacial patterns. First, statistical methods will be used to gain a deeper understanding of disordered patterns that are evolving chaotically in time. Physical systems to be investigated include interfacial waves and liquid crystal layers. Second, the dynamics and defects of quasicrystalline patterns patterns will be studied in a fluid system where the various excitations, e.g. phasons, can be studied directly by optical imaging. Finally, the dynamics of crack patterns and networks in polymeric films will be investigated as time allows. This RUI project involves the pairing of graduate and undergraduate researchers, which has been shown to be a remarkably effective training strategy. NON-TECHNICAL ABSTRACT: This program of experimental research is aimed at understanding the ordered and disordered patterns that arise via instability as a fluid or solid is driven away from equilibrium. Systems to be studied include waves on fluid interfaces, flows in liquid crystals, and cracking patterns in polymeric materials. Complex and chaotic dynamics generally prevent exact prediction of the pattern development, but a statistical approach can lead to limited but useful predictability. The methodology involves significant technological innovation, mainly centered on digital analysis of complex patterns. This RUI project involves the pairing of graduate and undergraduate researchers, which has been shown to be a remarkably effective training strategy. ***